Research Initiation: New Lower Bound Techniques in Computational Complexity

The field of computational complexity deals with the amount of various resources (e.g., time and memory space) required to solve a problem on a computer. This research is an investigation of new techniques to obtain good lower bounds on the worst case time complexity of various problems. The maxima problem will be considered. The complexity of this problem is understood in two and three dimensions, but no higher. The linear decision tree and the algebraic decision tree models of computation will also be investigated. Applications of results will also be considered.